Washington Metropolitan Alliance for Minority Participation in Science, Engineering and Technology

This proposal seeks support from the National Science Foundation to develop a strategic plan for implementing a successful Metropolitan Washington Alliance for Increasing Minority Graduates in Science and Engineering. The specific goal of the Alliance is to increase the annual number of African-American and Hispanic S&E baccalaureate graduates in the area to 2,000 by the year 2000. It is estimated that in 1989, some 400 African-American and Hispanic students earned baccalaureate degrees in science and engineering in the metropolitan Washington area. We have established a goal that will increase that number by a magnitude of five in the year 2000. This can only be accomplished by developing a systematic approach to S&E education focusing on precollege and undergraduate enrichment, academic and support services. The jurisdictions served by this proposal include the Washington Metropolitan area represented by counties and cities in suburban Maryland, Northern Virginia and the District of Columbia, a 2,300 square mile are with approximately 2.7 million people. The Washington, D.C. metropolitan region is especially will-suited for the establishment of a successful Alliance. It is one of the leading scientific research and development centers in the nation; the center of the Federal scientific effort; the site of many Government laboratories; a focal point for industrial research and development (with business showing great interest in S&E activities in the region); a major center of African- American and Asian-American life); the location of a number of comprehensive universities; and an area with more than 50,000 African-American and Hispanic youth between the ages of 16 and 18, who, with adequate support, have the potential to become 2,000 S&E baccalaureate graduates. Howard University is especially well-suited to assume the leadership role in this Alliance because the University is a comprehensive university of national significance, with graduate programs in a number of fields of natural science and mathematics, as well as in engineering, medicine, and dentistry. With its national Advisory Committee, chaired by Congressman Mervyn Dymally, the University's Institute for Science, Space and Technology has already begun to lay the groundwork for the development of an Alliance in the metropolitan Washington region. On June 27, 1990, a meeting was held with Howard University officials and representatives of the Consortium of Colleges and Universities, D.C. Public Schools, Montgomery County Public Schools, Federal R&D agencies, businesses and other private organizations to review opportunities and expand the development of this proposal.